CAREER: Fundamental Problems in Dynamic Fracture Mechanics

The objective of the proposed research is the thorough understanding of
fundamental phenomena in dynamic fracture of homogeneous and bimaterial systems
subjected to high shearing loads. Recent experimental evidence during shear
dominated crack propagation along interfaces, has shown the development of
supersonic crack speeds and crack face contact. In addition, theoretical
evidence predicts supersonic speeds even in homogeneous materials, under high
shear loading, if the homogeneous material exhibits a cohesive type failure
response. Here, experimental and numerical analysis will be conducted to
scrutinize the physical details of the contact zone and of limiting crack speeds
in bimaterial interface and homogeneous material systems. Special emphasis will
be placed on the issue of crack face friction and subsequent heating during
contact. The educational part of this proposal describes a plan for improvement
of teaching practices in current courses and enhanced undergraduate
laboratories, including animated classroom presentations as well as physical
demonstrations of counter-intuitive dynamical systems.